Warfare, Interpersonal Violence, and Legal Change in Papua New Guinea

This award supports the research of a cultural anthropologist studying the historical background and political consequences of change in the highlands of Papua New Guinea. The project will compare two areas differing in their experience with economic development: Mount Hagen and Lake Kopiago. The study will examine the impact on group violence of the recent introduction of guns (replacing spears and bows and arrows), as well as the recent emergence of young group leaders called "hero-criminals". Police records will be examined for patterns of disputes and violence, and intensive interviews will document the growing uncertainty about expectations of other people's actions. This research will add a valuable example to the roster of cases on the violent effects of economic development on tribal people. It is important to understand the local causes of violence in order to understand the patterns of violent reaction to development occurring in the world, so that political leaders can design programs to ameliorate these troubles.